Geometry of Pseudoholomorphic Curves and Gromov-Witten Invariants

Abstract

Award: DMS-0604874
Principal Investigator: Aleksey Zinger

The theory of Gromov-Witten invariants plays a prominent role in
symplectic topology, enumerative algebraic geometry, and string
theory. Via Gromov-Witten theory, string theorists have made
completely unexpected predictions concerning counts of complex
(holomorphic) curves in algebraic manifolds. Some of these
predictions have been verified mathematically, but most have
not. Many connections between Gromov-Witten theory and
enumerative geometry have been discovered independently of string
theory as well. However, many others remain to be found. The most
fundamental object in the Gromov-Witten theory is the moduli
space of (pseudo-) holomorphic maps. The PI has developed an
approach for studying its local structure using analytic
techniques of symplectic topology and a separate topological
approach for recovering global information from the local data.
Combined together, the two approaches have led to a variety of
results, in enumerative geometry and in symplectic topology, for
counts of curves of low genus, primarily zero and one. Among them
is a geometric relation between genus-one invariants of a
complete intersection and those of the ambient projective
space. One objective of this project is to verify the
long-standing mirror symmetry conjecture for counts of genus-one
curves in the quintic threefold, using this geometric
relation. Another objective is to apply the results to counting
genus-one curves in projective varieties. However, the primary
objective is to extend the detailed description of the moduli
space of genus-one maps already obtained to higher-genus cases,
especially genus two.

The broader impact of this project is potentially far
ranging. Its aim is to advance the fundamental understanding of
the Gromov-Witten theory, which in turn should lead to new
applications in symplectic topology and enumerative
geometry. Furthermore, it should open a way for testing a number
of mathematical predictions of string theory. If some of these
predictions were shown to fail, string theory would require at
least some modification, perhaps with implications for
understanding physical phenomena.